Nonequilibrium Phase Transitions in Heterogeneous Catalysis

Catalysis plays an essential role in many commercially important chemical reactions and is also an important element in most biochemical reactions. The focus of this grant is on models for heterogeneous catalysis under flow conditions, as they provide a paradigm of a nonequilibrium system which can exhibit phase transitions between steady states, macroscopic oscillations and even chaotic behavior. An objective is to understand the effects of spatial correlations and fluctuations on the dynamic and static properties of a system in a nonequilibrium steady state, particularly near a nonequilibrium phase transition. Research will be conducted on models for heterogeneous catalysis which exhibit both continuous and discontinuous transitions between steady states. These studies will be done using numerical simulation and by finite size scaling analysis. A numerical renormalization group analysis of the master equation will also be developed. These methods will be applied to study the effects of correlations and noise in systems that show transitions to time-dependent periodic and chaotic behavior.